Engineering Research Equipment Grant: Control System Research Laboratory Computer System

This project provides equipment to support research at Rutgers University. The equipment comprises a Hewlett Packard minicomputer together with assorted support equipment. It will be used to support research on controlling large flexible structures, a heart model, control systems for robots, bipedal walking models, and walking aids for the handicapped.